CAREER: Investigations of Ordered Conducting Polymer Solids and Nanostructures: A Multidisciplinary Approach to Research and Teaching

This CAREER award made to James E. Hutchison at the University of Oregon is supported by the Advanced Materials Program in the Chemistry Division. The goal of the research is to develop new molecular approaches for optimizing the conductivity, processability, nonlinear optical response and/or electrochromism of pi-conjugated conducting polymers. Two new classes of self-organizing polythiophenes will be studied: (1) regioregular poly-4-alkyl-2,2'-bithiophenes prepared by chemical polymerization methods, and (2) polybithiphene/polypeptide hybrids prepared by molecular templating. Physical studies of these polymer classes will determine their extent of conjugation, degree of interchain charge transport, conductivities, band gaps and nonlinear optical responses. The polythiophene/polypeptide hybrid polymers provide enhanced supramolecular order and opportunities to prepare discreet molecular wires of Angstrom-scale diameter which may be useful as interconnects between molecular electronic devices such as transistors, molecular switches or sensors. The CAREER educational plan will provided research and classroom training to better prepare students to excel in multidisciplinary research environments. Objectives include integrating research into the undergraduate curriculum, promoting peer- and self-learning and instilling a `can-do` problem-solving attitude in all students. Establishment of virtual office hours, and a surface science discussion group will foster collaborations. Faculty-mentored, self-taught courses will be designed to build problem-solving skills.